Student Travel Support for the Fourteenth Symposium on Networked Systems Design and Implementation (NSDI 2017)

This award is to support student travel to the Fourteenth Symposium on Networked Systems Design and Implementation (NSDI 2017) will be held in Boston, MA on March 27-29, 2017. The conference focuses on the design principles of large-scale networks and distributed systems and, in particular, challenges that are shared across systems as diverse as internet routing, peer-to-peer file sharing, sensor nets, scalable web services, and distributed network measurement.

NSDI 2017 will offer many opportunities for students to meet, interact, and exchange ideas in an informal atmosphere, including a welcome reception with members of the program committee, speakers, and organizers who are on site; small evening birds-of-a-feather sessions(including WiAC, the Women in Advanced Computing meetup), and more. USENIX also enlists the help of student volunteers to serve as scribes to summarize the talks and Q&A at all conference sessions. These reports are published in an issue of ;login:, giving additional value to the students via a deeper understanding of the material, writing experience, and interactions with speakers and other students collaborating on these reports